Workshop request: Opening of the Trail of Time at Grand Canyon: New Approaches to Geoscience Education in the National Park System

NSF funding is being used to support a Geoscience Education in the National Park System workshop on October 13-15, 2010. This workshop, being held in conjunction with the ribbon-cutting ceremony of the new interactive Trail of Time Geoscience Exhibition at the Grant Canyon, brings together interpretative experts from the National Park Service, experts in cognition and misconceptions about geological concepts such as 'deep time', informal science education experts, decision-makers, and members of the media. The goals of the workshop are to foster development of a cohesive and innovative approach to using National Park System resources to promote geoscience education and raise awareness of the importance of, and barriers to, geoscience education.